Integrating Scientific Visualization into the Undergraduate Curriculum

The Department of Chemistry is acquiring graphics-based workstations for students at all levels to explore such chemical concepts such as molecular structure, quantum mechanical energy calculations, energy minimizations and, simulate/predict reaction mechanisms. Beginning with the general chemistry course and continuing throughout the upper division sequence, computations and molecular descriptions of increasingly greater complexity are being performed. In both the organic and biochemistry courses are students are comparing and contrasting the results of the calculations with those obtained in the laboratory on the same systems.